Asymptotic Performance of Error Correcting Codes

Stepanov
DMS-0807592

The objectives of the project are to study iterative
decoding convergence and the dynamical structures near the fixed
point of the belief propagation decoding of low-density
parity-check codes. This will result in development of an
effective method of error correcting code performance analysis
based on the idea of instantons or most probable message
distortions causing the decoding error. The motivation for the
dynamics of iterations study comes from an observational fact:
nonconvergence of the iterations and the consequent decoding
error is because the iterations circle around the fixed point.
In contrast to the currently available method, the newly
developed instanton search method is applicable to the case of an
infinite (or very large in practice) number of iterations in
decoding.

During our everyday activities we send and receive a huge
amount of information. In many situations it is important that
the information is transmitted without the slightest error. To
decrease the probability of the transmission error people for
ages have introduced some redundancy in their messages, e.g.
repeating the message several times or using a phonetic alphabet.
Practically all modern electronic devices would not operate
properly without that kind of error correction. Recently it was
shown that a certain class of error correcting codes (low-density
parity-check codes) is extremely effective in suppressing errors.
These codes have a problem, though. We can not guarantee their
good performance in applications that demand a very small
probability of error, e.g. computer hard disk drives. A careful
analysis of the problem source is needed before we can adopt this
type of code in demanding industrial applications and enjoy the
benefits these codes provide. In this project the investigator
studies ways to achieve good performance of these codes in
practical applications.